The Development of Visual Search Models as a Basis for Predicting Visual Inspection Time and Accuracy

This Engineering Initiation Award research project will develop an improved methodology for determining allowed time in human visual inspection operations to provide industry with a tool for making more accurate assessments of product costs. Rather than rely on extensive worker observation, empirically-derived visual search models will serve as a basis for predicting inspection time, taking into account task characteristics such as item complexity, density, contrast, and area. After an initial review of visual search models and predetermined time systems, the models will be combined with new models obtained from experimentation, to serve as a basis for defining time standards. Resultant models will be validated with a circuit board inspection task, under a wide variety of task conditions. The proposed research should have a significant impact on both the modeling of human visual detection and on industrial job design and evaluation methodology. Despite the ongoing development of automated inspection systems, much industrial visual inspection is expected to be carried out by humans in the foreseeable future due to performance and cost limitations; therefore, this research should contribute to industrial improvements in this regard.